Integration of Thermastress Theory With Time Temperature Transformation Recrystallization Kinetics

This project deals with generating data such as Bainite Start Temperature (B's) in the Thermostress Process (TSP), to determine the shift of B's, etc., for various steels. The research is expected to result in complete integration, on a theoretical level, of the recently developed thermostress process with the present time, temperature, and transformation knowledge.